Upgrade of 500 MHZ Nuclear Magnetic Resonance Spectrometer

This award from the Chemistry Research Instrumentation and Facilities Program (CRIF) will assist the Department of Chemistry at The University of Florida to acquire an upgrade of an existing 500 MHz NMR Spectrometer. This equipment will permit the study of a variety of molecules, including organometallics, molecules of biochemical interest, and both natural and synthetic macromolecules. Nuclear Magnetic Resonance (NMR) spectroscopy is the most powerful tool available to chemists for the elucidation of the structure of molecules. It is used to identify unknown substances, characterize specific arrangements of atoms within molecules, and to study the dynamics of interactions between molecules in solution. Access to state-of-the-art NMR spectrometry is essential to chemists who are carrying out frontier research. The results from these NMR studies are useful in the areas such as polymers, catalysis, and in biology.